Preparation of Superconducting Thin Films of Perovskite Superconductors

This project will investigate the low temperature deposition of single phase superconducting films of YBa2Cu3O7 compound on Al2O3SiO2 and Si substrates. The main objective of this research is to use the versatility of the Activated Reactive Evaporation (ARE) process for the low temperature growth of single phase superconducting films of the YBa2Cu3O7 perovskite phase. The project objective is also to use sputter deposited thin films of SrTiO3, VO2, and TiO2 as diffusion mechanisms.